Planning: GRANTED Planning Grant: Workforce and Network Development to Engage Research (WANDER)

The purpose of the planning activities entitled “Workforce and Network Development to Engage Research (WANDER)” is to develop a unique model of data collection activities that will inform the development of a project to build workforce capacity to support research at Eastern Washington University (EWU).

The objectives of WANDER are to (1) build workforce capacity; (2) conduct data collection activities about Principal Investigator attitudes toward grant-seeking, perceptions of EWU’s sponsored programs office, desires for increased research support, and/or other institutional sponsored programs models; (3) develop internal networks with stakeholders in EWU’s sponsored programs’ primary ecosystem; and (4) develop external networks with other sponsored programs offices at institutions of higher education in the Pacific Northwest. The project will address research administration culture by giving primacy to listening and pursuing knowledge in institutional contexts. WANDER will collect data and knowledge from its own institution, as well as others, about all areas of opportunity in research administration.